CAREER: Development of Bioelectrochemical Systems for Remediation and Treatment

Flora 9733377 This is an award to support a project proposed in accord with the Guidelines for Submission of Proposals to the Faculty Early Career Development (CAREER) Program, NSF 97-87. The Principal Investigator's research goal is to study the potential use of bioelectrochemical systems for treatment of polluted water. His objectives are to obtain the engineering design parameters that would provide guidance to engineers in design of processes and systems utilizing these bioelectrochemical systems for treatment of surface and groundwaters. The research proposed is a renewal of work that was started under NSF's Research Initiation Award No. 94-10486. In accord with NSF 97-87, the Principal Investigator plans on involving undergraduate students in the conduct of his research. His plan for revising the undergraduate laboratory used for environmental engineering instruction is to structure it to provide opportunities for discovery and creativity by students rather than specifying the performance of rigid laboratory exercises consisting of experiments that are performed, data recorded and ended with a laboratory report. He plans to coordinate the laboratory experiences of students with lectures and classwork that will include addressing field-scale problems. ***